Dissertation Research: The Role of Citizen Advisory Councils in Marine Oil Spill and Pollution Prevention

This dissertation research will examine a novel legislative strategy for environmental policy. In the wake of the Exxon Valdez oil spill, federal legislation mandated two Citizen Advisory Councils (CACs) to help prevent accidental releases of oil into Alaskan waters by providing a citizen oversight and advisory function. Soon thereafter state legislation in Maine and California mandated two more advisory councils with similar functions. These four CACs are a novel collaborative effort between citizens, government, and industry to help prevent coastal oil spills and pollution. The objective of the proposed research is to evaluate the effectiveness of the advisory councils in achieving these preventive goals and to identify the factors which contribute to their successful operation. The research methods consist of structured interviews with selected CAC participants (citizen members, industry representatives, and public officials), a mail survey administered to all the CAC participants, and analysis of relevant documents. This research project is intended to provide a much-needed empirical contribution to the study of CACs that work with government and industry in the area of environmental risk management.